Software Security: Theory to Practice

Abstract
0438714
Zena M. Ariola
University of Oregon

We propose to organize a summer school on Software Security: Theory and Practice. The aim of the
school is to prepare graduate students, academic and industrial people to conduct research on this topic,
which is very important since more and more of our economy, defense, government and social life is online.
The curriculum will include basic foundational material for all attendees; advanced material for those
interested in new research directions; and presentation of applications . In more detail, we will present three
types of material:
1. Security Principles and Foundational Theory This will provide an introduction to the essential
concepts and methodologies.
2. Advanced Techniques for Software Security This material will consists of more recent results in
the area of language-based security.
3. Theory, in Practice This will demonstrate how theoretical results can be used by practitioners in
dealing with security problems.